Enhancing The Sensitivity of Quadrupole Mass Spectrometers

The primary goal of this project is to enhance the resolution and sensitivity of
mass spectrometers by two or three orders of magnitude. A secondary goal is to reduce power consumption. Combined, these goals will lead to the development of a portable
mass spectrometer with greater sensitivity than current, large mass spectrometers. This
will allow the quantitative analysis of low concentration compounds with little or no
sample preparation. This mass spectrometer could be widely used for environmental
assessment and for many other applications.

Three innovations will accomplish these goals. The first is the use of a cascading
DC/RF and RF-only quadrupole mass filter. This new filter will give excellent mass
resolution. It is also much less sensitive to mechanical tolerances, so small filters can be
built, and this leads to a large reduction in electrical power requirements.

The second innovation is the use of an integrated Faraday cup/VLSI amplifier
detector. Unconventional CMOS design leads to a single stage dc current gains of
100,000,000. Using extremely low biasing currents, differential and narrow frequency
ban operation will result also in significant improvement of the signal to noise ratio. This
detector will detect ion currents 1,000 times smaller than the conventional electron
multiplier detectors, and the performance of the VLSI detector should be much more
stable.

The third innovation is the addition of AC modulation to the detector circuitry.
This eliminates noise due to DC drift, thereby greatly improving the signal-to-noise ratio.
Results of this research may give the University of Wyoming a competitive edge
for obtaining additional funding for future research. Several government agencies may be
interested in expanding our results. Results of the proposed research may also generate a
significant interest in the private sector. Several branches of our economy may be
interested in portable mass spectrometers including the pharmaceutical industry, the
environmental remediation industry, the semiconductor industry, the petroleum industry,
and the mining industry.